Mathematical Sciences: Nonlinear Evolution Equations II

This project will study existence and regularity of solutions for nonlinear dispersive equations. The main topics to be considered are the development of singularities, the life span of solutions, and blow up of solutions to thermoelasticity equations. The techniques to be employed come mainly from harmonic analysis and apriori estimates for commutators. The questions to be analyzed are state of the art mathematical problems in equations modeling phenomena in physics and engineering.